Mechanisms of Catalytic Copper-Dioxygen Reactions U.S.-Egypt Cooperative Research; Science in Developing Countries

ABSTRACT NARRATIVE Description: This proposal proposes the continued support of the collaboration of the research groups of Dr. Geoffrey Davies of Northeastern University and Drs. Mohamed A. El- Sayed and Ahmed El-Toukhy of the University of Alexandria, Alexandria Egypt. These research groups have discovered and developed a new field of polymetallic transmetalation chemistry. Transmetalation is the replacement of metallic elements in a target material with other metallic elements received from chemical reagents. Research to date has been substantial resulting in nine published research papers with eight additional papers submitted for publication or in the advanced stage of preparation. This original research has revealed six new areas of importance that are considered worthy of further research and exploration. The new research is expected to have a large impact on chemical, materials and catalytic science. Further, it will provide numerous learning opportunities for students in modern inorganic and physical chemistry. Scope: The proposed research is programmed for two years with the principal investigators working in their counterpart's laboratories. The two Egyptian scientists will spend a total of 12 months at Northeastern University. Dr. Davies will work at Alexandria University for three months. This work division will advantage both researh groups in exposing one and another to the research facilities of each university, while giving the graduate students of each chemistry department opportunities to become acquainted with the scientific thinking, techniques and problem solving approaches employed by successful scientists from the cooperating foreign university. The six areas of proposed new research are: o Crystallization and Electrochemical Studies o Mechanisms of Phenolic Oxidative Coupling o Catalytic Effects of Transmetalation o Transmetalation Rate Laws and Mechanisms o Low Temperature Dimeric Copper(I)-Dioxygen Systems o Oxidation of Polynuclear Copper(I)-Dioxygen Complexes with Quinones This proposal meets the objectives of the Science in Developing Countries Program of advancing the international exchange of scientific knowledge and does contribute to the enhancement of science in a developing country.